Gas Chromatography-Mass Spectrometry in the Undergraduate Science Curriculum

This project will interface a mass selective detector and data station with a donated gas chromatograph, so that undergraduate chemistry students at CUNY-York College can utilize the powerful modern analytical technique of gas chromatography/mass spectrometry (GC/MS). Students who major in chemistry or in other disciplines of science will use GC/MS in instrumental analysis, in an integrated physical-inorganic laboratory course, and in undergraduate research projects. The students will be introduced to gas chromatography and mass spectrometry first as stand- alone techniques, and later as powerful combination techniques for separating and identifying the components of complex mixtures. Particular laboratory projects will be chosen for their relevance to students' interests and major disciplines. Acquiring GC/MS capability will enable CUNY-York College to continue its significant contribution to chemistry education of minority students.